Calculus of Functors

DMS-0204969
Thomas G. Goodwillie

We propose to continue our investigations in several versions
of "functorial calculus". Each of these is a technique that
exploits multirelative connectivity estimates to describe
continuous functors in some context in terms of special values;
for example a functor of spaces might be recovered from its
values at highly connected spaces, or a functor of subspaces
of a manifold from its values at low-dimensional subspaces, or
a functor of real inner product spaces from its values at high-dimensional spaces. Part of the proposal is to refine
the purely homotopy-theoretic version of "calculus". Other
parts are concerned with combining several versions and
applying them to various questions in both high- and
low-dimensional differential topology.

Each "functorial calculus" mentioned above is so called
because of a not-entirely-fanciful resemblance to the
ordinary diferential calculus of Newton and Leibniz.
Sometimes a fact about numbers is best proved by placing
it in a context where the number is part of a huge family of
numbers -- a numerical function. Properties of the function
then lead, by general theorems of calculus that may seem a
bit magical when encountered for the first time, to a
computation of the number. So it is here: sometimes a fact
about some geometrically defined object is best proved by
placing it in a context where the object is part of a huge
family of such objects -- a functor -- and using some magic
of a more modern kind. This analogy may show something of
the flavor of the work; the content is harder to get at,
because most of the "geometric" objects in question are
connected to everyday reality by rather long chains of
abstract ideas.